Thermodynamic Properties of Perovskites and their Polymorphs at Pressure and Temperature via IR Spectroscopy

The principal investigator will measure infrared spectra of important minerals at high temperature and pressure. From these data she will extract both thermodynamic and elastic information on these substances. The ultimate goal is to deduce the composition and thermal character of the Earth's interior by relating the data to seismic models.